U.S.-Chile Program Workshop on Theory and Methods of Cortical Dynamics; Pucon, Chile

0118406
Gray

This Americas Program award will support a workshop organized by Dr. Charles M. Gray, Montana State University, and Dr. Pedro E. Maldonado of the University of Chile, to be held in Pucon, Chile in March 2002. The workshop will focus on the theoretical and experimental foundations of cooperative cortical dynamics with the goal of discussing different and complementary approaches to improve our understanding of brain function.

Participants will discuss theoretical and empirical approaches to characterizing and modeling neuronal activity in different structures of the nervous system, using a variety of methods ranging from electrophysiological techniques for the recording of large numbers of neurons to the mathematical analysis of spike trains. An added benefit of this activity will be the introduction of advances in systems neuroscience and techniques employed to examine cortical function to students from the U.S. and throughout Latin America.